Dynamic Flux Balance Analysis of Hepatic Lipid Metabolism: Cell and Organ Studies

Therapy development for many metabolic diseases and disturbances in hampered by an incomplete understanding of the detailed mechanisms and system objectives. Metabolic diseases of the liver are particularly challenging due to the intrinsic complexity of this organ and its role in maintaining blood levels of nutrients for the entire body. In particular, hepatic steatosis, or fatty liver, is a condition estimated to affect 15 to 20% of the US population. Its key feature is an accumulation of fat droplets within hepatocytes, followed by a degradation of hepatocyte function. Interest in the causal mechanisms of fatty liver has been driven by the realization that fat accumulation in hepatocytes is often a precursor to more serious liver problems. In addition, the risk of more serious problems is proportional to the level of fat accumulation. Unfortunately, identification of the causal mechanisms is hampered by the complexity of the liver metabolic network, and the variety of metabolic disturbances that may lead to steatosis. Thus, a quantitative understanding of the lipid metabolism network in liver is clearly necessary for identification of the causes and developing therapeutic approaches for steatosis.
The long-term goals of this research are to develop a mathematical model of liver metabolism and to employ it for analysis and computational optimization of interventions for treating steatosis. The objective of this project is to obtain experimental data for training and testing a system-scale mathematical model of hepatocyte fat metabolism. This model is expected to enable reasonably accurate prediction of the responses of hepatocytes cells to a variety of disturbances. The central hypotheses of the proposal are: (A) the cellular control of hepatic fat metabolism behaves as an optimal feedback- controller and, (B) a mathematical model based on the optimal control of metabolism can predict the responses of cultured hepatocytes to stimuli. The proposed model can be used either for identification of pathological mechanisms leading to fat accumulation, or for testing of alternate hypotheses regarding methods for manipulating specific metabolic targets to reverse steatosis and re-establish homeostasis. The Specific Aims are: (1) To collect metabolite data for cultured hepatocytes exposed to lipid-disturbing stimuli; and (2) To model the mechanisms of lipid metabolic control in cultured hepatocyte and ex vivo livers. The output of the proposed work will be a liver metabolism model suitable for analysis and prediction of steatosis outcomes, with its accuracy and capabilities assessed. In addition, the modeling framework developed is likely to be applicable to other tissues and metabolic diseases involving multiple pathways.
Broader Impacts
The proposed work seeks to extend optimization-based mathematical modeling techniques to applications in mammalian physiology. As such, it is expected to stimulate application of these sophisticated modeling principles to other complex tissues and diseases. In the longer term, successful deployment of these predictive models will contribute powerful tools to the field of personalized medicine using a systems biology approach. The results of the research will be incorporated into lectures on metabolic modeling and cell culture bioreactors, in graduate courses currently taught by the Investigators. Specifically, “Tissue Engineering” and “Advanced Mathematics” will benefit from research-derived, learning modules and project activities. A new senior/graduate course entitled “Systems Biology for Biomedical Interventions” is also planned, and will involve at least one graduate student in teaching the modeling approaches. Two graduate students and two undergraduate students (including one underrepresented minority student per year will be trained in the research methods. In the third year, one graduate student will be trained in animal surgery and organ perfusion methods by our collaborators at Harvard Medical School. Additional impact will be achieved through the involvement of two underrepresented minority high school students in summer research. The research results will be disseminated to the scientific community by presentations at annual conferences such as those sponsored by AICHE, BMES and ACS as well as publication of manuscripts in high impact journals.